SBIR Phase I: Developing an Adaptive Compact Fuel Reformer with an Ultra-Fine Homogenous Atomizer

This Small Business Innovation Research (SBIR) Phase I Project will investigate the merits and
feasibility of an Adaptive Compact Fuel Reformer (ACFR) using an Ultra-Fine Homogeneous
Atomizer based on an autothermal process. Diesel reformer is the key to provide syngas (H2+CO) for
fuel cell auxiliary power unit (APU) which can significantly reduce engine idling fuel cost. Hydrogen
rich syngas with EGR is effective for simultaneously reducing engine NOx and PM emissions.
However, most diesel reformers face challenges of auto-ignition control, coking and fuel slip, size
and weight reduction, and durability issues, etc. The key innovation of the adaptive compact fuel
reformer is an ultra-fine atomizer, which has an innovative micro-circular orifice coupling ultra-thin
layer of fuel spray, steam and air flow simultaneously. The atomizer can produce very small fuel
droplets (~10 micron) and homogenous mixture, which can be quickly vaporized and converted into
syngas in a small space without auto-ignition, coking and slip. The Phase I work will complete the
key design work for the fuel reformer and conduct lab bench scale testing for key components.
The broader/commercial impacts of this research are significant potential benefits for US
energy security and environment protection. The potential customers include engine OEMs and auto
makers. The industry-university collaborated research will help graduate students carry on
fundamental research while providing deeper understanding of diesel fuel reformation for commercial
applications.